High Performance Liquid Chromatography in the Undergraduate Laboratory

This project will enhance undergraduate chemistry education at California State University-Fullerton by incorporating computer- controlled gradient high performance liquid chromatography (HPLC) capability into a vigorous undergraduate research program and advanced laboratory courses. In Biochemistry Laboratory and Integrated Chemistry Laboratory, all chemistry and biochemistry majors will learn the theory and practice of HPLC as well as computer interfacing and data storage, reduction, analysis, and interpretation. Students will use a wide variety of columns, solvent systems, and detectors for many different HPLC applications. The hands-on laboratory experience provided by this instrumentation will prepare students for graduate and professional schools, and for careers in chemistry and biochemistry.